Time-Resolved IR Studies of Organic Reactive Intermediates

The focus of this research if the time-resolved infrared (TRIR) studies of organic reactive intermediates. TRIR spectroscopy will be used to examine the structure and reactivity of biradicals, carbenes, nitrenium ions and the excited states of ketones and enones. The experimental approach, coupled with computational methods, will enhance basic understanding and will address specific unresolved issues in reactive intermediate chemistry. With this Faculty Early Development (CAREER) award, the Organic and Macromolecular Chemistry Program is supporting the research and educational activities of Dr. John P. Toscano of the Department of Chemistry at Johns Hopkins University. Professor Toscano will focus his research efforts on the time-resolved infrared studies of organic reactive intermediates. The structural information gained from the research will be used to clearly define, interpret and understand the reactivity of a variety of important photo-generated species. The educational activities are focused on outreach at the K-12 level, undergraduate research and on forming research connections with faculty at undergraduate teaching institutions.